Mathematics Renaissance K-12

9634025 Branca This fifty-seven month Local Systemic Change in Mathematics (LSCM) project, which builds on and joins the Middle Grades Mathematics Renaissance and the California Mathematics Project, provides teacher enhancement for 2,000 teachers of mathematics in grades K-12 in 16 clusters in four regions of California. The cluster, defined by a high school and its feeder middle and elementary schools, is the unit of participation in the project. From each school in the cluster, each secondary teacher of mathematics receives a minimum of 130 hours of professional development over the life of the project and each elementary teacher receives a minimum of 100 hours. Algebra -- algebra for all, algebraic thinking throughout the K-12 curriculum -- is the center of the mathematical work. As districts make their adoption decisions from a defined menu of high quality instructional materials (both NSF-supported and others), the project assists teachers in the implementation of comprehensive materials. This initiative will develop a model for K-12 articulation and will inform educators on the process of articulating a coherent K-12 program of professional development and instruction. Linkages are forged among schools engaged in mathematics reform, California Mathematics Project (CMP) sites, and university mathematicians. Estimated cost-sharing from CMP, local school districts, and the San Diego University Foundation is approximately $ 3.86 million.